Research Initiation: Expert System to Analyze Mechanical Products for Ease of Assembly

The research objective is to develop a framework for an expert system to assist designers during the early design stages and within the environment of a Computer-Aided Design system in the design of easy to assemble products. The system will provide estimates of the difficulty level in the automatic assembly of mechanical designs, provide re-design recommendations, and identify changes required in other components due to these suggestions. The research consists of: (1) the development and implementation of a basic flexible assembly model (BAM) and a second mode assembly model (SMAM) for mechanical products, (2) the development of a set of rules and procedures that employ the information in the models to design easy to assemble mechanical products, (3) the development of control strategies to process these rules and procedures and (4) the implementation of the rules and control strategies in an IBM AT compatible computer using AutoCAD and AutoLISP. The system will allow more flexibility in the assembly definition, automatically implementing changes in the complete assembly after performing re-design changes in specific product features. This will yield better products for automatic assembly operations. Future expansion of the system will allow the implementation of a complete decision support system which integrates design, process planning, and actual assembly.